Engineering Foundations Sixth Conference on the Recovery of Biological Products

This conference is to provide a forum for participants from the global biotechnology community and the US to discuss recent advances in the "Recovery of Biological Products". This is the sixth in a series of conferences that have become a leading international forum for the discussion and development of new areas in the exploration and commercialization of biological products, especially pharmaceutical products. The conference is to be held in Interlaken, Switzerland, on September 20-25, 1992. Registration is to be restricted to 225 participants.